Mathematical Sciences: Twistor, Complex Manifolds, and Differential Geometry

Claude LeBrun will study a number of problems in or related to Riemannian geometry in which complex-analytic techniques may be brought to bear by means of a twistor correspondence - that is, by thinking of the points of a Riemannian manifold as compact complex submanifolds of some associated complex manifold. Several of these problems, notably questions concerning solutions to Einstein's equations and the Yang-Mills equations, are motivated by physics. Others are problems internal to geometry and analysis concerning the existence or non-existence of solutions to particular partial differential equations of a geometric character. There are three principal directions in which the research will proceed. First he will seek large categories of examples of quaternionic manifolds. The second direction concerns further extensions of Witten's interpretation of Yang-Mills fields in terms of third order infinitesimal neighborhoods of embeddings. Such extensions have already been carried out by LeBrun in the case of self dual manifolds. The final part of the program involves defining a quaternionic analog of the notion of CR structure.